2000 Oceanographic Instrumentation

0071356
Findley
This award to University of Miami will provide instrumentation for oceanographic research for use on four research vessels operated by both the university's Rosenstiel School of Marine and Atmospheric Science and by the Harbor Branch Oceanographic Institution, all four operated as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes an acoustic doppler current profiler for use from R/V Walton Smith, a new vessel operated by RSMAS beginning in 2000, and a suite of sensors and water sampling system that will be used from both R/V Smith and from the three vessels operated by HBOI, R/Vs Johnson, Link and Sea Diver. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the North Atlantic Ocean and Caribbean Sea, during 2000 and future years.
***